ASTRONOMY - HOW DO WE KNOW?

ASTRONOMY - HOW DO WE KNOW? is a 4100 sq. ft. exhibit and program package for Discovery Place that will: 1) interpret the physical and chemical nature of astronomical bodies in the Universe, highlighting the scientific processes used in their discovery, 2) interpret, through interactive exhibits and programs, the basic technologies of the scientific study of astronomy, and 3) function as the complementary exhibition area to the new Spitz Space Voyager Planetarium system and its multi-dimensional program capabilities. ASTRONOMY - HOW DO WE KNOW? will make the science of astronomy more accessible to the public by demonstrating the above objectives through the fundamental concepts of Gravity, Light, Motion and Distance. Visitors will leave with a greater understanding of the process of learning about the Universe. Discovery Place will utilize the formative evaluation process in developing these exhibits to assure a product that will not only appeal to a broad audience, but will also meet a variety of identified needs within that audience. The exhibit and program package will open in October, 1992, with an anticipated yearly attendance of 700,000. The exhibits will be a permanent part of the museum and will be renewed through the general operating budget of the museum.